Paleomagnetic Studies of Transitional Behavior Recorded in Pleistocene Lavas with Emphasis on Long-Lived Field States

The PI will continue exploration of field behavior as recorded in Matuyama-aged volcanics from the Hawaii, Society Island and Reunion hotspots and others currently under investigation. In various stages of completion are studies of six transition zones corresponding to events which bound the Olduvai and Reunion subchrons recorded on the islands of Molokai, Moorea and Reunion. For each investigation, he will conduct complete-vector studies utilizing, in particular new-refined multi-specimen approach to absolute paleointensity. In order to ascertain with certainty the actual reversals involved,m he will also obtain radiometric ages for each thus far undated section.